Shipboard Scientific Support Equipment

9530878 COBURN This project will provide support for shipboard scientific support equipment for the research vessels ATLANTIS II, KNORR and OCEANUS, operated by the Woods Hole Oceanographic Institution, and dedicated to use in support of ocean science research. The Shipboard Scientific Support Equipment Program provides funds for ship equipment deemed essential to the proper and safe conduct of ocean science research. This Program provides support for such items as deck equipment including winch systems for the deployment and retrieval of scientific instruments, navigational equipment such as radars, gyroscopes and earth satellite receivers to pin point the location of research sites, communication equipment including radio transceivers and satellite transceivers for voice and scientific data communications and other equipment such as motorized workboats for transporting scientists to and from data retrieval sites. The Project Director, Joseph L. Coburn is fully qualified to direct this project having had considerable experience in overseeing similar activities. This project will allow the institution to upgrade the OCEANUS's winch systems with the addition of a spare winch drum, video monitoring equipment, a boom rest and guy wire for the crane, and improve safety with a new EPIRB for the OCEANUS, new gas detectors for the KNORR and OCEANUS, and a new gangway and raised stern rails on the OCEANUS. The project will improve communications with new radios for the KNORR and OCEANUS, and acquire a pressure washer for the OCEANUS. ***